Seismicity and Tremor in a Submarine Hydrothermal Vent Field

In the summer of 1988 the principal investigator measured microseismicity in and near the hydrothermal vent field of the Endeavor segment of the Juan de Fuca Ridge. A very surprising result was the large number (hundreds) of seismic events that were observed. The principal investigator thinks he has made the first observation of long duration tremor associated with a submarine hydrothermal field. The large number and unusual nature of these events make this data set unique. The principal investigator will: 1) construct a number-of-events vs. relative magnitude curve for as many events as possible; 2) characterize the spectra of the events; and 3) analyze the time variability of the events and compare with high-frequency data from near an active hydrothermal chimney.